Purchase of a 300 MHz NMR Spectrometer

Modern solid-state Nuclear Magnetic Resonance (NMR) spectroscopy offers the chemist one of the most powerful tools available for the study of the physical and chemical properties of materials. Fundamental knowledge of structure and dynamics of materials as diverse as biopolymers, resins, coals and liquid crystals is accessible by solid-state NMR techniques. Solid-state NMR studies often complement those carried out using solution NMR and X-ray analysis. Access to solid-state NMR is rapidly becoming essential to chemists carrying out frontier research. This award from the Chemical Instrumentation Program will help the Department of Chemistry at the University of Texas, Austin, to acquire a high-field NMR spectrometer suitable for carrying out solid-state NMR studies. The areas of chemical research that will be enhanced by the acquisition include the following: 1) Solid-state characterizations of new semiconductors and ceramic composities 2) Studies of solid-state/molecular microstructures using 13C-CPMAS NMR 3) The SP allotrope of carbon 4) Use of solid-state NMR with intractable polymers.